A Geochemical Technician for the Department of Geology, University of Maryland, College Park

9317136 Krogstad This award provides partial funding to support a technician for the Department of Geology at the University of Maryland, College Park. The technician will assume responsibility for the operation and maintenance of the Department's mass spectrometry laboratory used by students and faculty in a growing program of basic research in watershed geochemistry, ore formation, and origins of granites. ***